Photographic Image Analysis by Undergraduates in the Naturaland Social Sciences

The project will provide students in the natural and social sciences with experience in detailed image analysis. The instrumentation will allow Whittier College to make full instructional use of the Fairchild Aerial Photography Collection--a unique archive of historical (1928- 1964) aerial photographs. Because of the age and breadth of photography in the collection, both major and non-major students in several disciplines can use it for laboratory, class, and research projects. Geology students will use aerial photographs and maps to show the progress of natural processes and analyze geological features. Students in biology will be able to map vegetation, habitats, or particular environments and show how they have changed in response to natural events (e.g., fire) and changing land use. Sociology classes will analyze processes of urban development and the distribution of social and ethnic groups in terms of their geographic location in the natural and man-made landscape. The major piece of equipment to be purchased is a Bausch & Lomb Zoom Transfer Stereoscope. This instrument allows all types of images to be compared by carefully matching scales and removing distortions, and information on an image can be transferred to special- purpose maps. A digitizer tablet with appropriate software and a computer will be used to convert the graphical data to numerical form for image and statistical analyses.